CISE Research Instrumentation

A 16-node hypercube computer will be provided for researchers at Illinois Institute of Technology for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The equipment will be used for several research projects, including in particular: Message Driven Computing Natural Robotics Distributed Algorithms